Enhancement of the Computer Science Infrastructure at UMES

The goal of this infrastructure enhancement project is to increase the n umber of minority students who go on to graduate school in Computer Science. This two-year project is the first phase to the development of a full institutional infrastructure program at the University of Maryland - Eastern Shore. The project will focus on: o Installation of a Department Ethernet o Enhancement of a PC Laboratory o Acquisition of several Workstations o Expansion of an Advisory Committee o Faculty summer support o Faculty travel and consultation